An Investigation of Infinite Products and Their Associated Expansions

This research is concerned with computational algebra and number theory, in particular, Ramanujan pairs and other related series. New algorithms will be devised and implemented. Computational results are interesting in their own right and can lead to ideas for new theoretical discoveries.